Hydrodynamics of bubble motion and oscillatory flows

0072228
Papageorgiou

This work addresses computationally and analytically two classes of fluid
dynamics problems. The motion of bubbles through fluids containing
soluble surfactants is considered first. Experiments show that even trace
amounts of surfactants can increase the drag on moving bubbles
significantly. Through careful modeling, asymptotic analysis and direct
numerical simulations of the Navier-Stokes equations coupled with the
surfactant equations in the bulk and on the interface, we address both the
steady and unsteady problems and in particular evaluate the effect of
surfactants on wake size and control. Such controls are desirable in
enhanced interphase mass transfer systems. In parallel, we will also study
a class of exact Navier-Stokes solutions which emerges in models of
lubrication bearing flows. We have found that such exact solutions can
describe the viscous flow between two plates when one or both of the
plates move normal to themselves. When this boundary motion is periodic,
chaotic solutions can emerge at sufficiently high but order one Reynolds
numbers. These flows are underlying flows whose stability to wavelike
disturbances is highly complicated since the baseflow is chaotic to begin
with. We consider such local flows when they are embedded into finite
geometries. Direct Navier-Stokes computations will be performed in many
geometries and high frequency limits analyzed asymptotically, in order to
predict transitions to chaos.

This work studies mathematical problems in fluid dynamics leading to
scientific computations and analytical problems. The models arise from
applications concerned with enhancing technological processes such as
materials processing in microgravity, environmental and chemical
processes, biomedical applications and lubrication technologies. We use a
combination of mathematical and computational tools and intensive
computations to elucidate and identify regimes and mechanisms that can
enhance the efficiency of the applications mentioned above. For example,
we identify, using simulations, situations where flow in squeeze bearings
can stay laminar rather than become chaotic. Chaotic flows can cause the
equipment to fail with disastrous effects on machinery. Modeling and
simulations have the advantage, over experiments, of allowing wide
parameter studies and hence help identify critical experiments and design
strategies. The research is valuable in both benchmarking large scale
simulations as well as providing direct comparisons with experiments.